Problems in Population Genetics

Sawyer
0107420
The investigator studies ways to estimate the average amount
of selection for or against new mutations at a particular genetic
locus using information contained in aligned DNA or protein
sequences. If the estimated amount of selection is significantly
negative, this is an indication that the region is under
stabilizing selection and may have an important biological
function. If the estimated average amount of selection is
positive, then new variants in this region are favored, as is
common for some immune system genes. Models that allow random
variation of the amounts of selection over sites are also
considered. The methods studied are computationally easy to carry
out and have easily obtained significance levels, but assume
statistical independence between polymorphic sites instead of the
more usual assumption of tight linkage. Studies have shown in
many cases that short-segment gene conversion and recombination
act at a greater rate than point mutation, so that tight linkage
is not always a reasonable assumption. Simulations are carried
out to test the assumption that small to moderate amounts of gene
conversion and recombination are sufficient to guarantee enough
independence between sites so that the proposed estimators will
have desirable statistical properties. The models are applied to
aligned sequences from public databases. They are also applied to
human SNP datasets, for which the assumption of sitewise
independence is clearer.
Recent advances in biology have made a vast amount of data
available about the human genome and about the genomes of other
species. Tools for understanding the significance of this data,
and in particular the significance of variation in this data
between individuals, have lagged behind. One question is whether
new genetic variants at a particular genetic locus (or segment of
DNA) have been favored on the average in the past, have rendered
their owners less fit, or have had essentially the same effect on
the fate of individuals with those DNA variants. Tests are
proposed that give a computationally easy way of determining
which of these three cases applies at a particular genetic locus.
These tests are based on the configurations of variant sites in
DNA from several individuals at that locus. The results of this
test can give information about the function of this stretch of
DNA. They can also give information about how a particular gene
is affected by or is currently being affected by evolution.
Information from related biological species can give further
information. The difficulty of the proposed methods is that they
assume that different portions of the genetic locus are evolving
approximately independently. For some genetic data (for example,
SNP for "single-nucleotide polymorphism" data) this can generally
be assumed. The sensitivity of the proposed methods to this
independence assumption for non-SNP data is tested.